Collaborative Research: FRG: Ferroelectric phenomena in soft matter systems

In this Focused Research Group project the investigators
study the behavior of a class of soft materials characterized by
strong coupling of electrical, optical, and mechanical properties.
Such materials, which include some liquid crystals and elastomers,
can be used to develop ultra-fast switches for video display --
based on electro-optical coupling -- and miniature sensors and
actuators -- based on the electro-mechanical coupling. One goal
is to determine the conditions that enhance the combined effects
of the soft-elasticity modes of elastomers and their ferroelectric
response by application of external electric fields. In these
studies the investigators combine mathematical analysis, modeling,
computer simulations, physical experiments, and application of the
three-dimensional visualization techniques. These mathematical
problems are analytically modeled by highly nonlinear elliptic,
parabolic, mixed hyperbolic-parabolic and stochastic systems of
partial differential equations, including the equations of
nonlinear elasticity, viscoelastic flow, and Maxwell's equations
of electrodynamics. Partial differential equation methods for
phase transitions, modeling, and numerical tools such as spectral
methods and adaptivity to simulate the solutions are among the
techniques employed.

The project is a comprehensive effort towards modeling and
development of soft matter actuator and sensor devices used in a
vast array of applications, including ultra-fast optic and video
switching, artificial muscles, biological membranes, and
filaments. Increase of switching speeds and size reduction of the
device are two relevant technological goals at the heart of the
investigation. One type of materials to investigate, liquid
crystal elastomers, can be thought of as rubber networks that
require very little energy to be deformed along special
directions. This property, coupled with the efficient response of
the material to electric fields, may offer optimal ingredients for
developing high speed devices able to provide very large
mechanical deformations with the application of electric or
magnetic fields of small magnitude. These are highly desirable
properties, for instance, in the design of artificial muscles for
robots. The investigators carry out the studies by combining
mathematical analysis, computer simulations, and physical
experiments. Use of three-dimensional visualization techniques is
important in both conducting the work and disseminating the
results. Many of the problems present modeling challenges that
call for a synergistic effort of mathematicians and physicists. A
central principle in this endeavor is close cross-disciplinary
interaction among the applied and numerical analysts and the
physicists of the group. A major component of the project is the
interdisciplinary training of post-docs and graduate students,
including the organization of a summer school, development of new
courses, and summer research opportunities for undergraduate
students. Interdisciplinary conferences, group workshops, and
seminars devoted to the FRG project at each institution are also
planned.